Research Synthesis: Examining the Role of Authenticity in Informal Science Learning

Museums, science centers, zoos and other informal science education (ISE) institutions often focus on the idea of "authenticity" to engage the public. Authenticity includes providing something real, original, or even awe-inspiring to the visitor or learner--be it an object, a context, or an experience. While those educators, exhibit designers, and program developers who work in ISE settings often recognize authenticity as an important part of many informal learning experiences, this may be simply be an assumption driven by tradition in practice versus a strategy supported by evidence. This project seeks to better understand how and/or why "the real thing" may (or may not be) important for supporting informal science learning. By examining what is already known about authenticity and learning, the project will inform best practices in ISE as well as point to gaps in knowledge that might need further research. It is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.

This research synthesis takes a systematic approach to identify and compile both theoretical and empirical literature to better understand the role authenticity may play in supporting informal science learning. This project will gather ISE literature related to the effects of "authenticity" on learner outcomes, and will look to neighboring disciplines such as psychology, anthropology, media studies, linguistics, marketing and others to seek relevant theoretical perspectives and empirical work that might further understanding of the potential role of authenticity in ISE. The initial phase of the project will focus on gathering theoretical perspectives and positions that help explain the value or importance (or perhaps non-importance) of "realness" as it relates to learning, interest, and experience. A panel of experts from multiple disciplines will convene to help identify key perspectives and frameworks that may clarify the role or impacts of authenticity. A second phase focuses on gathering and assessing empirical studies that support (or refute) the relevant perspectives and theories identified from the initial multi-disciplinary foray into authenticity. To ensure breadth and depth of review, the PIs, research librarians, graduate students, and special topics classes will engage in identifying, evaluating, summarizing, and synthesizing the relevant research (including gray literature) to produce an initial synthesis report that will be reviewed by select experts from the earlier panel. A second convening of practitioners (exhibit developers, educators, program designers, etc.) will be used to further contextualize the findings in ways that may better inform current practices in providing effective ISE. The resulting products include a peer-reviewed research synthesis and a practitioner handbook.

The proposed project's Broader Impacts lie in the potential to inform ISE practice in exhibit and program design and in the delivery of ISE-related experiences. Although the importance of the authenticity of an object or experience may ultimately be determined by the individual, this study will be able to provide guidance to help practitioners and scholars in making sometimes difficult design choices. Such insights may also inform other learning environments (e.g. the classroom) as well as other disciplinary areas (e.g. history, anthropology, art).